PACIFIC 2011 Symposium: Particle Astrophysics and Cosmology, Including Fundamental InterActions held at the University of California Sept 8-13,2011

This award will provide participant support for early career scientists and graduate students to participate in the PACIFIC 2011 Symposium. This symposium will focus on the latest developments at the interface of particle physics, astrophysics, and cosmology and on their ramifications for understanding fundamental interactions.

It will be held September 8-13, 2011 at the University of California Richard B. Gump South Pacific Research Station, located on the island of Moorea in French Polynesia.

For Broader Impacts, it has a particular focus on early career scientists and graduate students. To make the symposium more accessible to the general public they have integrated a public lecture by one of the symposium organizers into the schedule.